A Distributed Computing Facility in Support of Atmospheric Science at Purdue University

Traditionally, researchers in the atmospheric sciences have had great needs in the area of computational support. This is due to the emphasis in the science on observations (hence, the need to manipulate and display large quantities of data) and the requirement for solutions to non-linear partial differential equations which can only be solved numerically with the aid of high speed computers. Many of the needs of atmospheric scientists can be satisfied by large centralized computer facilities (e.g. the National Center for Atmospheric Research Scientific Computing Division; National Science Foundation Sponsored supercomputer centers), but it has long been demonstrated that on-site access to mid-range computers with good computational and graphical capabilities can substantially enhance education and research productivity. In conjunction with cost sharing by Purdue University, this award will assist in the purchase of a mid-range departmental computer which will directly support educational activities and the research of seven faculty members who are either currently supported by the Foundation or have pending proposals.